MRI: Acquisition of a Cluster of Symmetric Multiprocessors

EIA-9977815
Chaudhary, Vipin
Guy, Edjlali
Wayne State University

MRI: Acquisition of a Cluster of Symmetric Multiprocessors

The purpose of this proposal is to set up a high performance computing cluster consisting of symmetric multiprocessors connected by a high speed switched network to support research and training in an advanced parallel programming environment. The specific goals include: 1) develop programming environments to effectively use a cluster of multiprocessors for scientific computing, 2) develop general computer programs for modeling and simulation, 3) educate students in the field of computational science and engineering and 4) perform numerically intensive calculations in the research areas of electronic structure theory; classical, semi-classical and quantum molecular dynamics simulations; Monte Carlo simulations of electronic devices; and the development of powerful procedures for automatic parallelization. These goals will be achieved through the proposed Automatic Parallelization Environment or Network of Workstations programming environment.